REU Site: Cloud Computing Security and Privacy

This project will establish a new REU site in Cloud Computing Security and Privacy at
Boise State University (BSU). Cloud computing is a relatively new internet computing
paradigm, having been developed and popularized only in the last decade. With the
widespread applications deployed in the internet, both the volume and types of cyberattacks
continue to increase and target every internet user. National infrastructure,
individuals, businesses, and agencies have fallen victim to cyber-attacks. Developing a
secure cloud computing environment requires computer science and cybersecurity
professionals with interdisciplinary knowledge and skills of software engineering, network
security, system security, cryptography, risk analysis, ethics and human behaviors,
security policies and laws, and many other security practices. To better defend the
valuable digital assets against cyber-attacks, it is an urgent national priority to make the
internet/cloud more secure. To answer the call, this REU site will recruit self-motivated
students and provide them with a variety of cutting-edge research topics in cloud security
and privacy. This will also help address the shortage in the cybersecurity workforce for the
nation.

This REU site will offer a nine-week summer research program for ten undergraduate
students each year to gain research experience. The objectives of this project are to (1)
recruit a diverse pool of motivated students from underrepresented groups and institutions
with limited research opportunities; (2) help students develop broad research skills by
conducting timely and important research projects; and (3) promote cybersecurity
education – encourage students to pursue graduate studies and to develop a career
interest in cybersecurity. In order to provide students a better research experience and
scaffold their development as a researcher, in addition to the research training, weekly
seminars, and professional talks in the field of cloud security and privacy, students will also
have the chance to attend a variety of activities to enhance their research skills offered by
the BSU summer research community. These additional activities include: (1) seminars for
discussing an array of topics, including responsible and ethical conduct of research, critical
thinking, library research activity, poster presentation, and tips to presenting research to a
public audience; and (2) a two-day Idaho Conference of Undergraduate Research (ICUR)
that brings together undergraduate students of diverse disciplines to showcase their
original work in poster presentations to public audience. At the end of the summer
program, the faculty mentors will continue to work with students to publish their research
results and advise them with graduate program applications or career planning as needed.

This project is jointly funded by CISE and the Established Program to Stimulate Competitive Research (EPSCoR).